Costs and Benefits of a Geographic Information Systems Approach to Fiscal Impact Analysis

This project is funded as a Phase I award under the 1988 Small Business Innovation Research Program Solicitation. The purpose of this research is to evaluate the costs and benefits of using a Geographic Information Systems (GIS) approach to conduct fiscal impact studies. The GIS approach will be carefully compared to six widely recognized non- geographic approaches, and, in addition, a survey will be done to determine the availability of the key data ingredients of the GIS approach. Because the use of such an approach allows consideration of the complexities of local finance, the unique physical, historical and financial policy variations among governmental units, it has the potential for yielding more reliable results to be used as the basis for governmental decisionmaking and sound financial planning.